Improvement of Cell and Molecular Biology Laboratories

Significant changes in two laboratory courses, Experimental Laboratory in Molecular and Cellular Biology, and Scanning Electron Microscopy, are being implemented by introducing new laboratory exercises which emphasize problem-solving using a variety of techniques. In the molecular course, student carry out projects involving separation and characterization of sub-cellular components. Students have significant responsibility for the design of the experiments and are expected to evaluate the advantages and limitations of the experimental approaches and techniques used. Electrophoresis systems and an ultracentrifuge provide students with the ability to isolate and analyze organelles, proteins and DNA. In the scanning electron microscopy course, a critical point dryer allows students to prepare biological specimens. This project enhances the opportunities available to young women with the aim of encouraging them to pursue graduate education and careers in research. The college will contribute an amount equal to the award.